Arithmetic and symmetry in quantum cohomology

This project studies quantum cohomology, a mathematical theory that emerged from string theory. At its most basic level, quantum cohomology encodes counts of the ways two-dimensional shapes can map into geometric spaces. Although the topic has its origins in geometry and physics, mathematicians have found since the early days of the subject that the resulting counts often have striking number-theoretic patterns. Until now, many of these examples have appeared in separate and sometimes disparate settings. The investigator will develop a more comprehensive understanding of the number-theoretic structures underlying quantum cohomology and will also develop new methods for incorporating symmetry into this theory. The project serves the national interest by advancing foundational mathematical research, strengthening connections to theoretical physics and quantum theory, and training students and early-career researchers.

The investigator will pursue two related directions. The first concerns the arithmetic structure of quantum cohomology for Fano varieties, especially the construction of p-adic Frobenius structures and Fontaine-Laffaille-type structures associated to quantum connections. This part of the project will use Floer-theoretic and categorical methods to study p-adic analogues of the Gamma conjectures, overconvergence properties of Frobenius structures, integrality phenomena in mirror symmetry, and integral structures in quantum local systems. The second direction concerns the quantum cohomology of symplectic and geometric invariant theory quotients. Building on work of Teleman and on the investigator’s earlier work with collaborators, the project will study a quantum GIT formula relating equivariant quantum cohomology to quantum cohomology of symplectic quotients. Broader impacts include mentoring junior researchers and developing new courses and degree pathways at the interface of mathematics, computation, and AI.